Mathematical Sciences: 1988 Summer Seminar on "ComputationalSolution of Nonlinear Systems of Equations"

This project is a summer seminar in applied mathematics to be held at Colorado State University and to be sponsored by the American Mathematical Society and the Society of Industrial and Applied Mathematics. The seminar will provide a wide-ranging survey of the current major thrusts in the numerical solution of nonlinear systems of equations. It is hoped that the participation in this conference will furnish ideal preparation for research-level graduate students and young researchers embarking upon careers in this area. In recent years significant progress has been made on the numerical solution of nonlinear systems, including: Global Newton or homotopy methods, continuation methods, nonlinear conjugate gradient and quasi-Newton methods, piecewise linear methods, complexity theory of certain nonlinear methods, mesh refinement and nonlinear multigrid methods. Experts in all of these techniques will participate in this meeting.